Development of Individual Differences in Decision Biases

There is considerable literature in the area of human judgment and
decision making demonstrating systematic use of simplifying heuristics and
the biases that can arise from them. For example, "framing effects" are
common in which people react to the manner in which information is labelled
by assigning more favorable evaluations to, say, a medical treatment that
is described as having a "75% success rate" as opposed to a "25% failure
rate". However, research by the Principal Investigator and others has
uncovered considerable variation in the extent to which different
individuals display such biases. Most recently, this research, which has
been done almost exclusively with adults, has linked these individual
differences to stable personality traits and decision styles. This
naturally brings up the dual questions of when such biases develop and
whether they can be linked to distinctive childhood dispositions. The
present series of studies is proposed to address these questions.
A major resource for these studies is an available population of 5-6
year-olds whose social and emotional development and cognitive capacity
have been tracked since they were toddlers. Thus, we have the capability of
relating children's decision making behavior to measures such as shyness,
impulsivity, and intelligence. In an initial study we showed that these
traits are related to risk-taking in a gambling-type game. We are in the
process of developing a battery of tasks/games which are "child-friendly"
yet capture the essence of the decision processes observed in adults. An
innovation of the new studies is that the parent as well as the child will
complete the tasks so that we can correlate the two sets of responses to
learn more about the development of decision biases.